Establishment of a Steering Committee for Research at Ocean Observatories and a Planning Office at the Consortium for Oceanographic Research and Education

0003385
Winokur
The Consortium for Oceanographic Research and Education (CORE) will undertake the formation of a "Coordinating Committee for Research at Ocean Observatories" with broad interdisciplinary representation from the ocean and earth sciences communities. This group will focus on the utilization of fixed ocean observatories (both cabled observatories and moored ocean buoys) to address basic research questions using sustained time series observations and interactive experiments. A Planning Office will also be established at CORE to assist the Coordinating Committee. The Planning Office will serve as the staff for the Coordinating Committee and will be responsible for day-to-day management of Committee activities. Due to the wide interest in the ocean science community in a program of basic research utilizing ocean observatories it appears appropriate to constitute this committee under the auspices of CORE.